RUI: Developing New Computational Tools for the Study of Dark Energy

The awardee has developed a novel method of typing supernovae in distant galaxies that does not require spectroscopic information. Support is provided to further refine and extend this method in collaboration with Hamilton College students. Supernovae are used as standard candles in cosmology and were crucial to the discovery of dark energy. The supported work will help define future space missions to further explore dark energy and its cosmological implications.

Broader impacts of this work include research training for an undergraduate student, and outreach via public talks, visits to local schools and community centers, and holding "Open Nights" at the local observatory.